Conference: 2025 CISE Computer System Research PI Meeting

The purpose of this project is to plan and organize the 2025 National Science Foundation (NSF) Principal Investigator (PI) Meeting of Computer System Research (CSR) Program, held in Boca Raton, FL Sept 17-18, 2025. The purpose of the meeting is to bring together active PIs and Program Directors (PDs) to exchange information and ideas to continue to advance research and explore new computer systems research directions. The program is planned for two days and will include keynotes, presentations by the PIs of featured projects, panel discussions, breakout meetings, poster sessions, an evening reception, and "office hours" with Program Directors. Successful outcomes of this work will inform both PIs and NSF PDs.